RIA: Semantic Concurrency Control for Real-Time Object- Oriented Databases

RIA: Semantic Concurrency Control for Real-Time Object-Oriented Databases This research addresses the design of concurrency control techniques for real-time object-oriented databases. There are two components to the research: (1) development of a formal schema model of a real-time object-oriented database system; and (2) development of real-time concurrency control techniques that employ application semantics and imprecision to support enforcement of all of the forms of constraints in a real-time object-oriented database. These forms of constraints are: data object logical consistency constraints, data object temporal consistency constraints, transaction logical consistency constraints, and transaction timing constraints. The concurrency control technique uses a concurrency control component encapsulated within each object that expresses conditional compatibility and semantic locking of object methods. This project implements the semantic real-time concurrency control techniques using a prototype real-time object-oriented database system. The research is useful in real-time control applications with large amounts of time-constrained data, such as: medical intensive care patient monitoring, vehicle control, manufacturing, and programmed stock trading; as well as for introducing a better general paradigm for management of real- time data in complex applications.